Collaborative Research: GEO-CM: Mobilization of Nickel and Cobalt during ultramafic rock alteration

Rocks in the deep Earth are known to be rich in nickel and cobalt. When these rocks are exposed to the surface and interact with water, they are easily altered and can sometimes concentrate these elements. Both nickel and cobalt are classified as critical minerals by the US Geological Survey and the Department of Energy given their importance to our modern life. Increasing demand for nickel and cobalt requires exploration for new deposits and new extraction methods. This proposal aims to study the distribution of critical metals in altered rocks. Results will allow prediction of the mobility of nickel and cobalt during alteration. This project will guide the search for ore deposits and the design of new extraction methods. Principal investigators will provide training opportunities for students, contributing to their development in state-of-the-art techniques and research.

A significant amount of global Nickel (Ni) and Cobalt (Co) resources are outcomes of interactions between fluids and ultramafic rocks, which contain considerably higher amounts of Ni and Co than most rocks on Earth. Ultramafic rocks can experience different types of alteration, including hydration, oxidation, and carbonation. These processes often lead to depletion or enrichment of Ni and Co in specific horizons, but their fate during these processes is not well-constrained. The best natural settings to study the mobility of these elements during rock alteration are sequences that contain hydrated ultramafics (serpentinites), partially carbonated ultramafics (ophicarbonates and soapstones), and completely carbonated ultramafics (listvenites). Using samples from locations with different alteration conditions, this work will map Ni and Co concentrations from thin section to outcrop scale, measure Ni isotopic compositions and elucidate reaction paths. Ultimately, by knowing the distribution and speciation of critical metals in altered lithologies, the fate and mobility of Ni and Co can be predicted and the conditions yielding ore-forming fluids can be constrained.